SGER: Analysis of Fundamental Control Mechanisms for Mobile Agents in Large Network Infrastructures

The objective of this proposal is the feasibility study of fundamental control mechanisms for
agent-based systems that facilitate network resource management and traffic control. The primary
emphasis is on orchestrating the work of multiple intelligent mobile agents such that the resulting
collaboration scales well with the size, the resource availability, and the dynamics of the
infrastructure. The proposed research investigates the feasibility of autonomously adapting the
size of the agent population as a function of parameters that describe properties of the
infrastructure directly or indirectly. The underlying idea is the separation of network centric
functions from the nodes into a mobile sub-layer. The researchers expect that this approach will yield a more
scalable architecture for solving a variety of different network centric problems. To facilitate this
approach, thet have defined fundamental mechanisms such as agent cloning, agent merging,
knowledge acquisition, and agent migration. It is through the use of these mechanisms that the researchers
attempt to show the feasibility of integrating the intelligent mobile agent paradigm into system-level
tasks. The proposed work will involve a formal analytical study of the behavior of the agent
population as a function of properties of the infrastructure and computational progress of
individual agents. The analysis will further be based on carefully constructed simulation
experiments and the emulation of a large distributed network environment.
This proposal intentionally disregards several issues of agent-based systems, such as knowledge
representation, fault tolerance, and security, and focuses on the design and analysis of the
fundamental mechanisms. We believe that the limited scope of the proposed project and its
intrinsic exploratory nature makes it an ideal candidate for the Small Grants for Exploratory
Research (SGER) program.